New Horizon Mid-Life Refit

9527467 KNOX The Research Vessel NEW HORIZON, owned by the University of California, San Diego, is operated primarily in support of NSF funded oceanographic research. The ship requires a mid-life refit to ensure continued productive service throughout her planned service life. Placed in service in 1978, the ship has operated in excess of 17 years. This project will support improvements and upgrades to the vessel in the following areas: Resolution of long term stability restrictions, Replacement and overhaul of obsolete or deteriorated equipment, machinery and systems necessary to ensure reliable operations, Upgrades of science equipment and support systems to allow conduct of increasingly complex missions, and Habitability enhancements. The project is under the direction of Dr. Robert A. Knox, Associate Director, Ship Operations and Marine Technical Support and Captain Thomas S. Althouse, Marine Superintendent, Scripps Institution of Oceanography. ***